Effects of High-Frequency Fluctuating Light on Photosynthe- sis and Production by Marine Macroalgae

High-frequency (<0.01-10 Hz) fluctuations are prominent characteristics of light in shallow, marine environments. High frequency fluctuations have been shown to have significant effects on photosynthesis and primary production by terrestrial plants and, more recently, by marine microalgae. The proposed research will examine effects of high-frequency light fluctuations on the photosynthetic physiology and productivity of the benthic macroalga, Chondrus crispus. Plants will be acclimated under a variety of constant and fluctuating irradiance, C-assimilation, and growth rates will be compared for the different treatments. The mechanisms of fluctuating light effects will be examined by comparing light-harvesting characteristics, carboxylating enzyme activity, light absorption kinetics, and pool sizes and turnover rates of metabolic substrates. Results of laboratory experiments will be related to environmental conditions by comparing responses of plants grown under different in situ light regimes. Overall, the proposed research will provide comprehensive information about effects of high-frequency fluctuations and response mechanisms in a marine alga from a light environment which is both highly variable and definable.